"Listening to the River" -- A Planning Grant

The Land Information Access Association seeks funds to support planning activities related to "Listening to the River," a project that will ultimately result in a new model for engaging teens and adults in environmental activities that can be transferred to other community groups and institutions. This long-term project focuses on an environmentally and regionally meaningful topic (i.e. watersheds), brings together teens and adults in scientific discovery, transforms these explorations into radio segments and creates a children's museum exhibit. Planning grant activities include: (1) a program summit to build new partnerships with informal-learning organizations and reinforce existing community networks; (2) assessment of the potential for a scalable, model project; and (3) focus and refinement of program goals and objectives.